FASEB Summer Conference: Positive Control of Transcription Initiation in Prokaryotes, " July 14-19, 1991, at Saxons River, Vermont"

This grant provides partial funding for a 1991 FASEB Summer Research Conference on "Positive Control or Transcription Initiation in Prokaryotes," to be held July 14-19 at the Vermont Academy, Saxtons River, Vermont. The conference is under the auspices of the Federation of American Societies of Experimental Biology (FASEB). The format for the conference will be the same that is used by the Gordon Research Conferences and others FASEB conferences. There will be a keynote session, nine major sessions with invited speakers, and poster sessions. The general topics to be included are: Dissection of the Biochemistry of Transcription Initiation; Activator-RNA Polymerase Interactions; Two-component Systems (sensors and effectors); Activator Paradigms; and DNA protein Interactions. The purpose of the meeting is to bring together geneticists, biochemists, and physical biochemists to exchange information. There have been dramatic advances in the field of transcription activation in the last few years, not only in well-studied Escherichia coli and Salmonella typhimurium, but also in important pathogens such as Bordetella pertussis and Vibrio cholerae. Although the topic of positive control of transcription initiation in prokaryotes is often one session in other meeting, this will be the only meeting devoted entirely to its discussion.